Collaborative Research: Controls of West Antarctic Ice Sheet Surface Mass Balance

The West Antarctic Ice Sheet (WAIS), with an ice volume equivalent to 4.3 meters of sea-level rise, and may dominate sea-level changes in the near future. The WAIS surface mass balance (the balance of snow added and snow lost) is of key interest to researchers, as it drives a change in the flow of ice into the ocean. Both the surface mass balance and the shifts in ice flow into the ocean, alter sea level. To determine changes in the WAIS contributions to sea-level, it is therefore critical to understand the atmospheric processes driving WAIS surface mass balance and ice flow. In particular, the ice sheet's response to surface mass balance is nonlinear, meaning small changes in weather patterns triggered by variations over the tropics may produce large changes in ice flow. It is therefore critical to assess how changes in both low (e.g., tropics) and high (e.g., polar regions) latitudes combine to impact WAIS surface mass balance and ice flow, and the potential to cross tipping points that would result in rapid changes in sea level. This project will also leverage the existing University of Utah Masters of Science in Secondary School Teaching (MSSST) program, which supports motivated middle and high school teachers to earn an M.S. while still actively engaging in classroom teaching.

This project addresses two primary research questions motivated by the need to improve our understanding of atmospheric forcing of WAIS surface mass balance and dynamic response: (1) What mechanisms generate interannual-to-multidecadal surface mass balance variability and trends in different sectors of WAIS? (2) How do variations at multiple frequencies and spatially divergent trends in surface mass balance project onto ice sheet dynamics? We use a combination of multi-platform, spatially dense surface mass balance records, two century-length climate reanalyses, and glacier numerical modeling to address these two questions. The observational work will use multivariate statistical methods to identify internal versus tropically-forced modes of variability relevant to spatiotemporal variations in SMB across WAIS, leveraging spatially dense surface mass balance records from cores and radar in conjunction with multiple century-length atmospheric and sea surface temperature data sets. The resulting hypotheses of causality will then be tested by conducting boundary-forcing experiments with a global atmospheric model. Finally, the response of ice sheet dynamics to the spectrum of forcing from the observational and atmospheric model results will be investigated using a hierarchy of numerical ice sheet models. Ultimately, this work will deconvolve the role of tropical and intrinsic variability and trends on the dynamic response of WAIS to SMB variance and trends and how that varies across different regions of WAIS. The results will point directly to the mechanisms most likely to significantly influence ice sheet SMB and dynamics in the coming decades to centuries.